ITR/(DMS): A Computational Environment for Multi-scale MHD Turbulence Studies

Modeling MHD (magneto-hydrodynamic) turbulence has become increasingly
important both in terrestrial and engineering applications, such as
fusion devices and plasma propulsion, as well as in space and
astrophysical environments such as the solar wind and astrophysical
jets. The magneto-hydrodynamic nature of the plasma fluid imposes
constraints on the numerical procedures involved. Likewise, modeling in
the turbulent regime -- for turbulence is ubiquitous -- also imposes
constraints and challenges on the numerical procedures employed. The
numerical approach and demands of computation time and accuracy
translate into algorithmic (or software) advances which can avail the
hardware -- itself advancing rapidly. In this project these advances
entail: Adaptively refined grids, where fine resolution only in regions
of interest reduces overall CPU requirements; MHD shock capturing
methods, which improve accuracy of the calculation; parallel computing
techniques, which take advantage of the availability of multiple
processors and memory and cache hierarchy; and sub-grid models, which
allow coarser grids than otherwise for turbulent regimes. The analysis
of the resulting large multi-block multi-processor data requires
advanced data visualization tools to examine the physics, the raison
d'etre for the calculations. The project will develop a computational
environment, consisting of a 3D MHD simulation code with adaptive grid
refinement capabilities, complex time-dependent boundary conditions and
optimized to run under MPI on various parallel computers, and a
visualization system that can handle multi-block multi-processor MHD AMR
data.

In this end-to-end modeling and discovery process, information
technology (IT) plays a critical role. From software engineering
principles that result in robust codes, and smarter data structures that
are required for AMR, to single-node optimization and better
communication strategies on parallel architectures, to visualization
tool development and implementation, IT makes possible knowledge
discovery through simulation in a more efficient and orderly fashion.
The requirements for MHD turbulence modeling being so considerable, this
efficiency of IT translates into enabling the science or technology.
I.e. without the application of these IT principles, physically
important and interesting regimes would not be analyzed. The results of
this project will significantly enhance the modeling capabilities of
diverse flows and will specifically be applied to the problem of
heliospheric magnetic field configuration and solar wind turbulence. 3D
MHD simulations of the heliospheric fields and flows that include
rotation, shear, waves, turbulence, current sheets, pressure-balanced
structures, and interaction regions, which thus represent most of the
major physical effects of importance, will be performed. The effort will
enable future studies on particle propagation and magnetic field
configuration for "space weather" effects on Earth. The project will
directly train a post-doctoral scholar and a graduate student in
relevant physics and computational mathematics; project results will be
communicated to the community via conference and journal publications
and the web, and through classes taught by the PI.